Collaborative Research: Elements: Linear and Nonlinear Solvers for the Advanced Solver for Planetary Evolution, Convection, and Tectonics (ASPECT)

The Earth’s deep interior has always been an enigma, because it cannot be accessed physically; what is known is largely the result of computer simulations. These simulations have become vastly more powerful and detailed over the past decades. The Advanced Solver for Planetary Evolution, Convection, and Tectonics (ASPECT) software package enables simulations of the Earth’s solid parts (i.e., the part above the core and below the surface), increasing understanding of the Earth’s interior processes. New high performance computing system architectures and the need for modeling Earth’s tectonic and other processes at ever greater scales and fidelity motivate the need for a new generation of improvements to ASPECT. This project improves the numerical solution algorithms to enable new research including modeling hazards such as earthquakes, understanding the origin and distribution of critical minerals and energy resources, and investigating the Earth’s carbon cycle over millions of years. The project supports current and new users by creating training materials that help geoscientists and space scientists to develop their own simulations of Earth as well as of other planets, moons, and asteroids within and outside the solar system.

Over the last two decades the community of geodynamics researchers investigating processes within the rocky portions of Earth and other planets, moons, and asteroids has advanced from modeling viscous convection to simulations that include highly nonlinear processes spanning vast spatiotemporal scales from planetary surfaces to their cores. The Advanced Solver for Planetary Evolution, Convection, and Tectonics (ASPECT), a modular and extensible open source software that scales to the largest computers available and uses state-of-the-art numerical methods, enables these advanced simulations. However, recent studies have found that there are many exciting and societally important applications that ASPECT cannot simulate efficiently or at all. This project implements improvements to ASPECT’s linear and nonlinear solvers to improve performance and robustness, replace the multiphase flow formulation, and apply these improvements to advanced use cases that span specific (present-day), generalized, and emerging multiphysics scenarios. The improved software allows the ASPECT user community to run highly complex models with fewer computational resources and to address frontier research questions in the Earth and space sciences. Training materials developed through the project enable the ASPECT user community to rapidly integrate the project outcomes into their research programs, and numerical methods developed in this project benefit other areas of the computational science and engineering community.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Research, Innovation, Synergies and Education section in the Directorate of Geosciences.